A Computerized 3D Neuroanatomic Atlas

A computerized three dimensional (3D) atlas of the rat brain will be developed to enable users to visualize the complex spatial relationships among brain structures. The systems developed will serve as a basis for quantitating morphometric measurements in three dimensions and understanding the spatial relationships between structure and function. In addition these studies will aid subsequent researchers using steriotaxic methodologies to study neural function.